MRI: Acquisition of Infrastructure to Enhance Research in Computer Science and Engineering in HPC in Puerto Rico

Proposal #: CNS 07-22515
PI(s): Cruz, Alfredo
Farahat, Nader.; Lopez-Bonilla, Roman.; Zaharov, Viktor
Institution: Polytechnic University of PR
San Juan, PR 00919-2017
Title: MRI/Acq.: Infrastructure to Enhance Research in Computer Science and Engineering in HPC
Project Proposed:
This project, enhancing an existing cluster to serve a diverse set of projects that fall within the domains of ECE/CS and require high performance computing (HPC), requests funds for a memory and processor upgrade to be utilized for multidisciplinary research, enhancing the HPC center, increasing access of students and faculty, and fostering integration of research and education. The instrumentation enables the institution to assist in the scientific, technological and economic transformation of the jurisdiction, mainly populated by an underrepresented group in CISE areas. The facility supports research and education in diverse research areas such as evolutionary algorithms, neural networks, visualization, face recognition, smart antennas, etc. It specifically contributes to the following research projects.
. Genetic Algorithms and Parallel Processing; Very Large Neural Networks;
. 3D Face Recognition; Pattern Visualization and High Performance Visualization;
. Computational Modeling and Simulation of Smart Antennas; Smart Antennas;
. Return Loss Prediction of Various Antennas Using Different Signal Processing and Modeling Techniques; and
. Meta Classifiers and Clustering Techniques

Broader Impact: The infrastructure contributes to develop a recognized center that can collaborate with other institutions and industries, paving the way to building more balanced (ethnical and racial) technological enterprises. The institution services a large number of female and minority students. While promoting research, the center is expected to act as a prototype of educational experiences for other minority-serving institutions.